Changing Curriculum, Changing Practice

The Changing Curriculum, Changing Practice project, led by mathematics educators at the Education Development Center, is studying the impact of implementing a NSF-funded, high school mathematics curriculum that emphasizes mathematical habits of mind. This curriculum focuses on ways of thinking and doing mathematics in contrast with curricula that focus on mathematical topics. The project is studying the development of teachers' mathematical knowledge for teaching and their capacity to align their instruction with the new curriculum. The project includes a moderate level of professional development and the development of valid and reliable instruments to assess teachers' mathematical knowledge for teaching and their instructional practices.

This four-year, mixed-methods study is investigating the conjecture that high school teachers' implementation of a curriculum emphasizing mathematical habits of mind will lead to measurable changes in teachers' mathematical knowledge and their instruction. The investigators are also interested in the relationships among (1) teachers' prior knowledge, (2) their use of the curriculum and (3) the school-level support for implementation. The investigators are studying the implementation of the curriculum by 70 teachers in 12 schools that vary in socio-economic status of the students and geographic location. The research design includes observations of the instruction of a sub-sample of nine teachers to obtain a finer-grained measure of instructional practice. They are developing or adapting existing instruments that measure teachers' knowledge and alignment of instruction with the goals of teaching mathematical habits of mind. Using the Instructional Quality Assessment rubric during visits to the classroom, they are assessing students' opportunities to develop mathematical thinking skills. The use of mixed-methods approaches will allow the researchers to analyze the data from multiple perspectives.

This study is part of a long-term effort to help high school students develop specific mathematical habits of mind. The current study is building on previous curriculum development and also developing insights for future studies investigating students' adoption of mathematical habits of mind. The current project is an important effort to understand the roles teachers play in implementing curricular changes that have the potential for improving student achievement in mathematics. Teachers are the critical bridging agents who connect curriculum and learners. This study will help to explain how teachers' knowledge, teachers' instruction, and teachers' contexts within schools contribute to or detract from the faithful implementation of the goals intended by a curriculum. It will lay a foundation for understanding future efforts to assess what students learn and how they learn it.